Curriculum Development for the Design, Fabrication, and Utilization of Chip-Based Micro-Analytical Systems

This award provides funding to Texas Tech University under the direction of Dr. Shubhra Gangopadhyay, for the support of a Combined Research-Curriculum Development project entitled, "Curriculum Development for the Design, Fabrication, and Utilization of Chip-Based Micro-Analytical Systems." This project will involve the development of curriculum in micro devices and micro sensors geared towards providing both undergraduate and graduate students with as much hands-on and real-world experience as possible. The three-semester sequence will include a semester on the basics of Microsystems and the techniques of microfabrication. The second semester would be an in-depth look at a few Microsystems with an emphasis on gaining understanding through modeling and in-depth process understanding. The third semester would give students the opportunity to design, build, and test their own Microsystem.